FSML:Expansion and Enhancement of Analytical Facilities at the Shannon Point Marine Center

Western Washington University's Shannon Point Marine Center
(SPMC) is strategically located in the northern Puget Sound basin, providing
direct access from the mainland to a wide variety of marine and estuarine
habitats that support a rich and diverse biota. The location and facilities provide
distinctive opportunities for process-oriented research on productivity of coastal
watersheds and wetlands, nutrient cycling and regeneration, microbial ecology, and
benthic metabolism and on life history phenomena of local fish, invertebrate,
and marine plant species. SPMC is actively involved in both undergraduate and
Master's of Science academic programs including serving as a site for upper
division courses and supporting extensive undergraduate and graduate research. Students come from both the home institution and from colleges and universities from
around the country. Programs for undergraduates include Research Experiences
for Undergraduates, the Minorities in Marine Science Undergraduate Program and
the Science Education and Research Undergraduate program. To promote research and
Training, SPMC has developed a database accessible to visitors and remote
investigators. In cooperation with the nearby Padilla Bay National Estuarine
Research Reserve, SPMC has identified a number of model study sites that can support
long-term research in the region, particularly with respect to seagrass communities
that are unusually extensive for west coast estuaries. In order to provide additional
focus to investigations of these communities that can both provide the basis for
productive collaborative research and address local and regional management
concerns, SPMC is developing an appropriate field and analytical facilities base.
With the addition of two new research vessels SPMC is well-equipped to pursue
on-site field investigations. Because of greatly increased research and training
activity in recent years, however, analytical laboratory space has become a severely
limiting factor. In order to pursue studies of geochemical and biochemical
processes and to accommodate the interests of visiting investigators, SPMC
will renovate and properly furnish existing laboratory space for use as an
additional analytical laboratory, thus doubling available space for this purpose.
SPMC will also purchase new analytical and support instrumentation not presently
available that will enhance the facilities capacity for research.